Theoretical Research in General Relativity and Relativistic Cosmology

This research aims at the accurate numerical constructions of the full 3+1 dimensional black hole spacetimes. Instead of the traditional approach of using special time slicings to avoid the singularities inherent in black hole spacetimes, a new approach using black hole horizons as inner boundaries in numerical evolution is being developed in full 3-D numerical relativity. Such a horizon boundary scheme is expected to have major impact on the numerical study of black holes. The theme of the research is on the numerical study of black hole spacetimes. Since the LIGO/VIRGO arrays are expected to begin taking data during this decade, it is important to perform accurate calculations for the shape and strength of the wave forms generated during collisions of black holes, as such events are considered to be one of the most interesting sources of detectable gravitational radiation.